Mathematical Sciences: Nonsmooth Analysis and Approximation Methods in Optimization and Control

The principal investigator will work on several problems in the areas of control theory, optimaization, nonsmooth analysis, and their applications. Effective qualitative and numerical methods for studying and solving complex problems in nonlinear optimization and control will be developed. Optimal control problems are useful as mathematical models in many areas of engineering and operations management. By better understanding their structure and properties, the gained insight will lead to improved numerical optimaization algorithms.